Research in High Energy Physics

9526278 Blumenfeld In this proposal, Professor Blumenfeld requests support for participation of his group at Johns Hopkins in the NOMAD experiment at CERN. This experiment is a search for neutrino oscillations in which a muon neutrino converts to a tau neutrino. The experiment is sensitive in a mass region that is important in cosmilogical models. ***